Aerosol Radiative Effects-- Aerosol Characterization Experiment (ACE)-Asia Aircraft and Surface Observations and Analysis

This project will provide radiation measurements on board the C-130 aircraft and at the ground site at Cheju Island, Korea, for ACE-Asia (Aerosol Characterization Experiment). Seven airborne spectral and broadband radiometers and five surface radiometers will be deployed. Flight tracks along extended aerosol gradients will be used to investigate the evolution of aerosol effects, in particular aerosol radiative forcing, as aerosol properties change as a function of time/distance over the ocean. The data will be integrated with other ACE-Asia measurements and radiative transfer modeling will be performed to estimate the radiative effects of aerosols be comparing observed and calculated radiative fluxes, optical depths, direct and diffuse radiation fields, and tropospheric/atmospheric heating.